The Eighteenth Riviere-Fabes Symposium in Analysis and PDE

Abstract (Keel, 1503700):

This award provides funding for the Eighteenth Riviere-Fabes Symposium in Analysis and PDE, to be held at the University of Minnesota from April 17 to April 19, 2015.

The symposium focuses on recent developments in Analysis, especially in the fields of partial differential equations, harmonic analysis, fluid mechanics, optimal transport, geometry in high dimensions and Banach spaces. The confirmed speakers are Alessio Figalli, Nader Masmoudi, Vitali Milman and Laure Saint-Raymond. The award gives young researchers without other funding the opportunity to participate at the conference. The organizing committee plans to strive to make this funding opportunity known to the target groups by mailing lists, posters and advertisements in professional organizations. More information will be made available at http://www.math.umn.edu/conferences/riv_fabes/